A Hypercube Multiprocessor

The group at Purdue headed by Professor T. Casavant will purchase a 64- node hypercube multiprocessor which it will use to explore algorithms and their implementation for future advanced parallel systems. Some of the research projects involved will be: o Languages for parallel computation o PDE, VLSI and computer vision systems o Parallelism control